SIGNALS

To provide the general public with an understanding of the basic principles that underlie the transmission, storage, and retrieval of information, the Fleet Center proposes to build SIGNALS, a 4,500 square foot exhibition. SIGNALS will be divided into three sections, of approximately 15 interactive exhibits each, which explore the physical principles of wave motion, the properties of electromagnetic pulses useful for communications, and the signal processing that enables us to handle information. An Advisory Committee comprised of highly qualified individuals at the leading edge of their fields will support development of SIGNALS; a very experienced team of exhibit developers will fabricate the exhibition. SIGNALS will become a permanent exhibition in an expanded Fleet Center, where it is expected to attract 1 million visitors a year, including at least 100,000 K-12 students. Since the lack of technological understanding is a national problem, we propose to build a 3,000 square foot traveling version of SIGNALS, contingent upon an NSF review of the completed permanent exhibition. The total cost for both exhibitions is $1,983,480. We are requesting $985,900 from NSF: $692,800 for the permanent exhibition and $293,100 for the traveling exhibition. The project will begin in June, 1992, and be completed by June, 1996.